Laboratory study: Sediment transport in wave-supported gravity currents

Horner-Devine

Abstract

The PIs will combine a series of laboratory experiments with field observations with the aim of improving our understanding of the vertical structure of wave supported gravity currents (WSGC). Specifically, the proposed laboratory studies will address whether the high concentrations of suspended sediment necessary to initiate down-slope transport can be achieved solely by resuspension, or whether sediment convergence is necessary. The work has important implications for sediment transport in a wide range of environments. Previous observations of high concentration fluid muds in energetic oceanic environments have been largely limited to areas with extremely high fluvial sediment input. Understanding the role of sediment supply to the formation and initiation of this mode of sediment transport will improve the understanding of cross-shelf sediment transport.

Across-shelf transport by wave-supported turbidity currents is a newly identified, potentially dominant mechanism for moving fine sediment (and associated constituents such as carbon and contaminants) across continental shelves. The project will also support one graduate student, enhance undergraduate courses, and provide outreach to pre-college students through the UW Open House.